Investigation of the Liquefaction Potential of Saturated Sands at Low Levels of Excitation and Earthquake Shaking

This study investigates the phenomenon of soil liquefaction induced by low levels of ground shaking. The results of the engineering research on soil liquefaction, to date, provide only a limited understanding of the relationship between the earthquake intensity and soil liquefaction. The general assumption is that liquefaction occurs at high earthquake intensities (for example, above intensity VI in Modified Mercelli Intensity Scale). An investigation of this phenomena is likely to provide new insight into understanding the liquefaction process. A labortory test program will be conducted of cyclic triaxial compression tests on very loose to medium dense saturated sands and conditions will be determined that will trigger liquefaction. A correlation of the experimental data will be made with the analysis results of liquefaction at moderate levels of ground shaking. The results will establish the initial stress conditions and the effects of superimposed dynamic stresses on the potential for progressive failure of slopes.